Investigating Inupiaq Cultural Resilience: A Pilot Study

This is a Small Grant for Exploratory Research which will enable the PI, Lisa Wexler, to assess the applicability of indirect elicitation methodology among Inupiaq communities in Northwest Alaska. The researcher will be doing preliminary analyses of cultural narratives among various age cohorts in order to explore the relationship between these narratives and cultural resilience. In addition, the researcher will examine ways in which cultural narratives change over generations.